Ergodic Theory, Groups, and Geometry

Abstract
Zimmer

This research will investigate actions of Lie groups and related questions
of dynamics, topology, and geometry. A focus will be on the actions of
non-compact semisimple Lie groups on manifolds, and the relationship
between the group, geometric structures invariant under the action, and the
topology of the manifold, in particular the fundamental group. Use of
ergodic theory, i.e., the measure theoretic structure and behavior of group
actions, will be extensive. In particular, the structure of stationary
measures and invariant measures for these actions, and the extent to which
such general measures are similar to standard arithmetic or projective
models, will play a major role.

The study of symmetry has played a major role in science and mathematics,
and is a fundamental, often indispensable, tool for understanding many
phenomena. The connections to science and technology span the gamut from
elementary particle physics, to crystal structure of materials, to network
design, to dynamical systems. The underlying mathematics for studying
symmetry is group theory. This research will focus on fundamental
mathematical questions concerning large symmetry groups, i.e. situations in
which the structure under consideration has many symmetries. It is
anticipated that this work will contribute to the fabric of fundamental
understanding of symmetry, thereby increasing the power of its potential
application across science.